Hormonal Regulation of Lipid Metabolism in Fish

In this study the action and interaction of hormones on lipid (fat) metabolism, particularly lipid metabolism in liver will be investigated. The liver is an important organ in animal metabolism, however, little information exists concerning its role as a fat store. Fish (chinook salmon, rainbow trout), which have a unique ability to store lipid in their liver, are the model for these studies. Initial investigations will focus on the actions of various pancreatic hormones (insulin, glucagon and somatostatin) in the whole animal. The metabolic action of a particular hormone as well as the interaction of that hormone with other hormones will be examined. The relationship between aspects of lipid metabolism and alteration in carbohydrate metabolism as well as the biochemical processes operating within the liver cell will be examined to determine the mechanisms by which pancreatic hormones influence lipid metabolism.